I-Corps: Translation potential of drone propellers with bio-inspired surface features designed to reduce drone noise

This I-Corps project is based on the development of a bio inspired, 3D printed drone propellers that reduce noise and annoyance while maintaining aerodynamic efficiency. Currently, community noise is the primary barrier to commercial drone deployment. Complaints constrain when, where, and how often drones can operate, costing operators an estimated $150–$300 per hour in forfeited revenue and limiting growth across inspection, delivery, and urban air mobility applications. Regulators are also beginning to impose hard noise level limits, and in defense and surveillance settings, the same propeller noise that annoys communities can also create an acoustic signature that compromises missions. This technology incorporates micro structured surface features directly into propeller blades modeled on owl feather morphology. Testing has demonstrated up to five decibels of noise reduction without loss of thrust. Validated low-noise propellers may expand the market for drone-enabled services such as infrastructure inspection, precision agriculture, emergency response, and delivery in noise-sensitive environments. In addition, the technology may have defense applications.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of 3D-printed drone propellers with bio-inspired surface features designed to reduce drone noise and psychoacoustic annoyance at constant thrust. This technology builds on foundational research in bio inspired aeroacoustics, psychoacoustics, and additive manufacturing by pairing aerodynamic noise reducing surface designs with manufacturing approaches that enable repeatable, durable production. The technology applies micro structured surface treatments, inspired by owl feather morphology, directly onto propeller blades using fused filament fabrication (FFF). Owl-inspired surface morphologies can reduce aeroacoustic noise at the propeller scale, but prior approaches have largely remained confined to laboratory demonstrations because of limited manufacturing pathways for repeatable, durable hardware. This gap is addressed through a design-to-fabrication workflow that embeds manufacturing constraints directly into the propeller design process. Testing across approximately 45 configurations has demonstrated up to 5 dB noise reduction with no aerodynamic efficiency penalty. Psychoacoustic metrics, including tonality, sharpness, and spectral balance, were quantified using International Organization for Standardization methods to provide a rigorous technical foundation. This technology has the potential to advance quieter drone operations across public, commercial, and defense applications, supporting expanded deployment in noise sensitive environments.